Boston Renaissance in Mathematics & Science Education

9353325 Hamadeh This award to the Boston Public Schools is to evaluate and cultivate the potential for major systemic reform in mathematics and science education. The study will define how BPS can improve access to and the quality of mathematics and science education. The two working goals of the program are to create a mathematics and science profile of BPS and to develop a mathematics and science leadership team. An advisory board, an executive committee, a leadership team, technical support team and various working groups will direct the administration of five tasks in five key areas. Data generated will be used to ascertain the status of access and quality of mathematics and science education in Boston. ***